Materials Synthesis and Processing in Carbon Dioxide

This award is made in the Environmentally Benign Chemical Synthesis and Processing Program and is jointly funded by the Division of Chemistry and the Division of Chemical and Transport Systems Engineering. Additional support is provided by the Office of Pollution Prevention and Toxics of the Environmental Protection Agency, and the industrial collaborators are from DuPont, 3M, and Unilever Research. Joseph M. DeSimone of the Chemistry Department, University of North Carolina at Chapel Hill, will develop chemical synthesis and processing technologies using carbon dioxide-based solvent systems for both homogeneous and heterogeneous manufacturing processing, and Keith P. Johnston of the Chemical Engineering at the University of Texas at Austin will perform studies of phase behavior and structures of microemulsions. Carbon dioxide is an environmentally sound dispersing medium for chemical reactions, and has been shown to be useful for polymerization reactions. In carbon dioxide solvent, this research will study: (1) synthesis of materials under homogeneous conditions; (2) phase behavior and structure of microemulsions and emulsions; (3) synthesis of materials utilizing dispersions and emulsion techniques; and (4) processing of materials concentrating on product isolation with desired morphologies. Chemical industry uses large volumes of organic and chlorinated solvents which present serious disposal or recycling problems. The utility of carbon dioxide as a replacement solvent for the manufacture of polymers, including reforming and extrusion steps, will be examined in this project. Fundamental properties of supercritical fluids and reaction chemistry in this medium will be investigated. Representative synthetic routes will be tested, so that positive results could be extended to many systems.